Effects of Third-Harmonic Flux in Electrical Apparatus

We have discovered that for most practical magnetic materials, a combination of third-harmonic and fundamental flux can reduce the excitation current and core losses significantly below the levels found with the fundamental flux alone. The third harmonic can result naturally or can be applied. This effect is greater under more saturated conditions. Before applying this phenomenon fully to improve the performance of electromagnetic apparatus--primarily transformers and rotating machines--by either reducing losses and improving efficiency under rated conditions or increasing the rating, a thorough understanding of how materials will perform under the influence of third-harmonic flux is absolutely needed. As an immediate goal, a theoretical and experimental investigation in the following form is proposed: 1) mathematical models to describe with useful engineering accuracy how core losses and excitation current vary with varying amounts and relative phases of fundamental and third-harmonic flux; 2) useful mathematical circuit models for devices (transformer and rotating machines) that accurately represent coupling caused by core material nonlinearity between fundamental and harmonic circuits; 3) experimental studies related to the mathematical models; and 4) evaluation of potential improvements and their cost effectiveness. This fundamental knowledge will enable further improvement of the performance of electrical machines and transformers.